Advanced Computing and Programming in the Mechanical Engineering Curriculum

The objective of this proposal is the meaningful integration of advanced computing knowledge and techniques into the undergraduate mechanical engineering curriculum. The vehicle for this integration is the creation of an innovative and engaging advanced computing track or specialization for mechanical engineering students. The first implementation will be at the University of Illinois at Chicago; however, the project will be developed for portability, so that deliverables, especially a new capstone course, will greatly aid other schools in implementing curricular changes tailored to their particular needs. It will thus impact students well beyond the UIC campus.

The project is motivated by the lasting roles that computing and information technologies have claimed in mechanical engineering: embedded microprocessors have become commonplace in engineered systems, and the enterprise of engineering design and testing have been migrating to virtual and simulated environments. These trends underscore the fact that good computing practice is becoming as important to engineers as good laboratory practice and sound mathematics.

The proposal addresses the fact that the undergraduate engineer's training in programming has evolved little over the last few decades. And, while students are being exposed to powerful commercial software tools at an increasing rate, the underlying fundamental computational principles are generally overlooked.

The proposed project may be summarized by the following list of outcomes, which will be assessed by an independent evaluator to determine if the activity is a success:

Outcome # 1: Instill advanced computing and programming skills. Mechanical engineering students will learn skills and concepts that are normally only taught to computer scientists: object-oriented programming, data structures, algorithm design, graphical interfaces, large scale scientific computing, and more. A capstone course, which constitutes the centerpiece of the proposal, will integrate the computer science topics with mechanical engineering science and mechanical engineering design.

Outcome # 2: Develop better engineers. Although students will be learning computer science, the goal is to make them better engineers. Since engineers can only use what they know, the investigators hypothesize that these students will be better equipped for the information age, recognizing how IT tools and concepts can be used and exploited in the design of mechanical and thermal/fluid devices and systems.

Outcome #3: Engage minority middle school students. The investigators capitalize on great opportunities for middle school students to participate in the project in a meaningful way: as pilots of virtual aircraft the undergraduates design. The students are exposed to the exciting world of engineering, learning the important roles of high-level mathematics and physics.

Outcome #4: Create a portable product. The final objective of the project is to create a deliverable: the foundation for an advanced computing track that mechanical engineering departments at other institutions may adopt and adapt to suit their own purposes with relative ease and little cost. The capstone course, in particular, can be used for this purpose. We shall produce a considerable amount of software infrastructure and educational materials to distribute freely over the web and we have a strategy to publicize it.

The investigators' areas of expertise span much of the broad discipline of mechanical engineering. The team is complemented by a computer scientist, a specialist in software engineering. They are well-positioned to create the valuable educational experience for mechanical engineering undergraduates at UIC and beyond.
0